Development of Behavior and Associations in Avian Brood Parasitism

9412399 Payne Brood parasitic birds lay their eggs in the nest of other species, the fosters, which rear their young; the parasite birds do not rear their own young. In the African finches, field work suggests that adult parasites copy the song of the birds that rear them, and females mate with males with songs like their own foster parents. This style of behavior may have led to new races and species. The project tests these ideas with behavior experiments, field work, and molecular genetics to compare the evolutionary history of the parasites and their foster species. In experiments, the parasites will lay in aviaries in their normal fosters' nest. The eggs will be moved to a new foster species, and the young will be reared by this foster. Then the behavior of the adult parasites will be tested to determine if males sing the song of the bird that reared them, and females prefer males that sing like their foster father. The experiment recreates the conditions when the parasite switches to a new foster species, at the beginning of a cultural speciation event. This is a novel model of the origin of species in birds. In the field in Africa, young parasites will be photographed to test how similar they are in appearance as begging young to their fosters' young, which have bright mouth colors. Morphology and genetics will be tested for evidence of a past switch of foster species in natural condition. Molecular genetics of adults and of young finches will be compared for the gene histories of the species of brood parasites and their foster species group, to test whether the parasites evolved along with their old foster species, or switched from old to new foster species.